EAGER: Addressing the Community College Credit Loss Problem within Four-Year Computer Science Programs

The credit-loss problem is a persistent barrier for students transferring from community colleges (CCs) to four-year universities in STEM fields. Credits often do not transfer cleanly or apply toward major requirements, particularly in STEM, where rigid course sequences and prerequisite structures are common. As a result, students must repeat coursework, delay graduation, and face increased costs—all of which contribute to high attrition rates and student debt. These challenges are compounded by inconsistent articulation agreements, under-resourced advising, and institutional misalignment. Despite efforts to address this issue – such as statewide course-numbering systems and advising initiatives –substantial credit loss remains.

The project will conduct a three-university pilot of a competency-based approach. The driving hypothesis is that transfer students often, but unnecessarily, lose all credits associated with a class because they are missing some but not all of the content in the equivalent class at the four-year institution. In this pilot transfer students will complete a placement assessment to identify the appropriate entry point in the Computer Science major at the four-year university. Students who demonstrate partial mastery of a required class will complete a one-credit supplemental course, while those with significant gaps will repeat the course — regardless of course numbering or existing articulation agreements. The goal is to help transfer students identify the appropriate starting point in the computing degree and to do this in a scalable and easy-to-update way. Although this pilot focuses on transfer in computing majors, the credit-loss problem spans all of STEM; thus a successful pilot will open the opportunity to use this approach in other disciplines.